CAREER: Programmable Security for Distributed Systems and Databases

John Hale
University of Tulsa
CCR-9984774

ABSTRACT
Systematic attacks to military, government and corporate networks underscore
the fundamental importance of computer security. Unfortunately, current
approaches to security often yield ad hoc patchworks of inconsistent policies
and incompatible mechanisms. The problem is two-fold: Techniques and tools are
limited, and educational programs are sparse.
The research activities embed configurable security services within
programming languages for developing distributed applications. Denotational
semantics for these languages map high-level access control structures into a
ticket-based model that captures heterogeneous security policies and supports
the formal verification of secure behavior. Specialized algorithms implement
security proofs for applications at compile-time and runtime.
A secure information enclave, a proof-of-concept application, is built
around a glue language with programmable security policy coordination services.
Mediators gather metadata from remote sites, engaging cooperative policy
management methods to negotiate secure interoperability. Static and dynamic
analyses guarantee global policy consistency for the enclave.
The educational activities have three major thrusts: The development of a
Center of Excellence for Information Assurance Education, the expansion of the
Tulsa Undergraduate Research Challenge --a nationally recognized program of
academics, research and service designed for computer science majors, and the
systematic incorporation of minorities, especially Native Americans (the PI is a
native Cherokee), in computer science and engineering programs in the state of
Oklahoma.